Industry/University Cooperative Research: Structure and Properties of Semifluorinated n-Alkanes (Materials Research)

This cooperative project will study semifluorinated n-alkane polymers to elucidate their solid state structure, the nature of structural transitions that are observed below their melting temperature, and their propensity to form liquid crystalline mesophases when dissolved in appropriate solvents. The objective of this research effort is to gain a better understanding of the behavior of fluorinated polymers, a class of materials that has important industrial applications, for example, as heat-resistant electrical insulators. The approach being taken here is fundamental. The packing of the molecules and other molecular and supermolecular characteristics will be calculated. The properties of relatively short molecules which will serve as models for the long polymeric chains will be determined. The predicted findings will then be checked with a battery of sophisticated instrumental methods.